Collaborative Research: Module-based Courseware and Laboratory Development for Teaching Secure Wireless Sensor Networks

Computer Science (31)

The "Collaborative Research: Module-based Courseware and Laboratory Development for Teaching Secure Wireless Sensor Networks" project is developing instructional materials and case studies to support wireless sensor network education.

Intellectual Merit: This project is developing a set of curricular modules to teach the fundamentals of secure wireless sensor networking. They are developing a testbed for wireless sensor networking between the participating institutions. This testbed is enabling students at both institutions to develop, deploy, and test their projects.

Broader Impact: The project is disseminating their results through presentations at both regional and national conferences as well as in the National Science Digital Library (NSDL).